Organization of 2000 Integrated Photonics Research Topical Meeting

To provide student travel support to enable graduate students to attend the Integrated Photonics Research Topical Metting July 12-15, 2000, Quebec City, Canada. This is a premier meeting for research in integrated and guided-wave photonics, which is a topic of considerable importance especially in the area of current fiber optical systems. Most students attending this meeting present papers, and others attend for information. In both cases, and to encourage student attendance at this and future IPR meetings, this application is to provide student travel grants, to some maximum value of $200 per student.